Particle Acceleration in Extended Radio Sources

This award supports a continuing program of investigations into the physics of extragalactic radio sources by two of the leading contributors to this field. Using the supernova remnant Cassiopeia A as a Rosetta stone for the process of particle acceleration, a unified program of numerical simulation and high resolution observations will probe the mechanisms which provide the relativistic particles producing the non-thermal emission of radio galaxies.